Coordinated Global Wind Measurements with UNH Meteor Radar System

Coordinated Global Wind Measurements with the UNH Meteor Radar System This proposal requests funds to operate the UNH Meteor Radar as part of the Mesosphere Lower Thermosphere Radar Network and to continue global measurements under the Lower Thermosphere Coupling Study (LTCS) of CEDAR/MLTCS of STEP. The radar will also be used to make joint observations with the Incoherent Scatter Radar at Millstone Hill. Continuing studies of mean winds, tides, gravity waves, and longer period winds will accompany the radar measurements.